Modeling Strongly Correlated Multilayered Nanostructures for use as Thermoelectric Refrigerators

This award supports theoretical and computational research on
thermoelectric materials. In these materials, the flow of heat and
electric charge are linked in a way that makes it possible to convert
electrical current into heat flow for cooling purposes, or to convert
heat flow into electrical current for power generation. Thermoelectric
devices are already used in specialized applications, but improved
materials that allow more efficient device operation are needed. This
project will use theory and computation to search for novel materials
with improved thermoelectric properties for cooling applications. The
research will address the roles of both electrons and lattice vibrations
in the transport of heat and electric charge in thermoelectric
materials. Materials with strong electron-electron interactions will be
investigated, both in bulk form, as well as in artificially engineered
nanostructures. The goal is to develop efficient and accurate
computational methods that can be used to identify promising classes of
materials that optimize competing factors relevant for cooling and to
elucidate ways in which nanostructures can be used to modify both charge
and heat flow to improve thermoelectric performance.

This project supports the training of graduate students, both in the
academic research environment and in the industrial R&D context. The
project also provides research experiences for undergraduate students,
and supports the continued development and assessment of a course in
quantum mechanics and materials science for non-science students. A
related outreach program will introduce the wonders of the quantum world
to elementary-school students.